U.S.-Greece Workshop: Past, Present, and Future of Materials and Processes for Load Bearing

0738600
Kaler

This project provides support for a workshop in Greece in Fall 2007 to develop future research collaborations between international materials experts from academia, government and industry relating to processes used for load-bearing structures. The U.S. lead investigators are Eric Kaler of the University of Delaware and James Seferis from the Foundation for Research, Experiential Educational Developmental Operational Management (FREEDOM). The Greek team leads are George Papanicolaou from the University of Patras, Nikos Andreanopoulos from National Technical University of Athens, and Danis Papadoupoulos from University of Athens.

The topics to be addressed at this workshop include (1) transdisciplinary research relating to materials and processes of load-bearing structures in aviation, medicine, building construction, and ship building, (2) materials and processes for ecological building construction, (3) the application of nano-structures towards the development of larger megastructures. The workshop will be organized as a series of discussions followed by break-out sessions to facilitate collaborations and follow-on research activities. Several U.S. junior researchers and students will be supported to attend.

This workshop will leverage the expertise of the U.S. and international participants while strengthening research ties. Furthermore, the workshop participants will explore the concept of using museums as incubators for new businesses by analyzing an exhibited plane's tail fin to improve advanced composite components.